CAREER: Characterization of Cognitive Models of Conceptual Understanding in Practicing Civil Engineers and Development of Situated Curricular Materials

This CAREER engineering education research project will advance our understanding of the differences in how engineering students and practicing engineers understand fundamental concepts of civil engineering. By mapping these differences, the project will help bridge the gap between what is taught in college and what students need to know to become effective civil engineers. Using the results of this research, educators understand be able to develop curricular materials that allow students to more rapidly enter the professional practice of engineering. A key aspect of this project is sharing the teaching tools widely among other universities.